The Topological Approach to Asynchronous Computability

The choice of primitive coordination operations, whether reading and writing a shared memory, message-passing, or more complex operations, has become a crucial design issue. To make such choices, one must analyze the behavior of multi- process executions, reasoning about the multitude of possible combinations of concurrent operations. This is an unusually delicate and laborious task. The goal of this research is to replace this need to argue about concurrent executions with combinatorial conditions on the geometric representation of problems. This should allow researchers and designers, instead of analyzing behaviors, to apply powerful mathematical tools to recognize when certain protocols are impossible, to evaluate the power of alternative synchronization primitives, or to make explicit the assumptions needed to make a given problem solvable. This project pursues the problem of characterizing and classifying the power of synchronization primitives in different models. Prior research has developed powerful new tools based on classical topology for analyzing fault- tolerant concurrent alogrithms and data structures in a variety of models and architectures. This research has shown that a large class of synchronization problems can be associated with a high-dimensional geometric structure called a simplicial complex, and that the computational complexity of solving the problem using a given underlying architecture is captured by certain topological properties of the complex. These properties have been used to give a complete characterization of the synchronization problems solvable in asynchronous read/write memory, and to provide impossiblity results and lower bounds for several known open problems in both the asynchronous model and in the synchronous message-passing model. These techniques are being applied toward a comprehensive theory of multiprocessor synchronization. ***